Statistical Models of Two-Dimensional and Geostrophic Turbulence

ABSTRACT for NSF/DMS Applied Mathematics

Bruce E. Turkington
Department of Mathematics and Statistics
University of Massachusetts, Amherst

The research project concerns statistical models of turbulent fluid
motions. In particular, these investigations focus on equilibrium
models of coherent structures in developed turbulent flows that are
either two-dimensional or quasi-geostrophic. The principal motivation
for this work comes from applications in geophysical fluid dynamics.
Statistical equilibrium models defined by Gibbs ensembles are
constructed from the conserved quantities for the underlying fluid
dynamics. The continuum limit of these lattice models is analyzed
using probabilistic techniques, especially the theory of large
deviations. This approach furnishes rigorous derivations of the
constrained maximum entropy principles whose solutions are the most
probable macroscopic states of the systems. These macrostates
represent long-lived, large-scale flows that self-organize in the
turbulent vorticity field. For instance, they can be zonal shear
flows or embedded vortex structures. In a variety of contexts,
including one-layer barotropic flows and two-layer baroclinic flows,
the variational problems governing these states are solved numerically
by means of a robust and accurate method. In this way, quantitative
predictions about the macroscopic behavior of the system, which is
turbulent on the microscopic scales, can be made without resolving all
the scales of motion. Another direction of the research is to extend
these equilibrium theories to a new class of quasi-equilibrium
theories determined by collective variables that are not necessarily
conserved quantities. This extension allows the same general approach
to be applied in situations where the coherent states are
slow-varying, but unsteady.

Turbulent fluid flow remains one of the unsolved puzzles of physical
science. A better theoretical understanding of turbulence would
greatly improve our ability to compute the behavior of natural fluid
motions. In particular, geophysical fluid flows -- the large-scale
motions of the Earth's oceans and atmosphere -- are very difficult to
predict because of their turbulent fluctuations. Nevertheless, these
flow systems, whose motions are mainly horizontal, have special
properties not shared by general fluid motions in three dimensions.
Consequently, they tend to exhibit organized behavior in their largest
features while they remain disordered and random on a range of smaller
length scales. The research conducted in this project addresses the
mathematical and computational issues involved in modeling phenomena
of this type. Specifically, the work seeks to develop the tools
necessary to calculate the persistent, predominant states of nearly
two-dimensional fluid systems without resolving the full complexity of
their detailed behavior. With such tools in hand, the typical or
"most probable" states of geophysical flows can be characterized and
computed. Besides being of fundamental interest in the field of fluid
dynamics, these states can used as building blocks in predictions
about the long-term trends in the ocean-atmosphere system, and hence
they are relevant to weather forecasting and climate modeling.